Multilevel methods in PDE constrained optimization

The objective of this project is to develop efficient multilevel
algorithms for large-scale optimization problems constrained by partial
differential equations (PDEs) with additional inequality constraints (ICs)
on the controls and states. The computational revolution of the last two
decades has fostered not only high-resolution numerical computations based
on PDE models, but also a shift from model based simulation to model based
design. The latter translates into the question of solving optimization
problems in order to identify initial and/or boundary values, material
properties, sources, and other parameters for which the PDE models behave
in a desired way. However, in general, by increasing resolution not only
do optimization problems get larger, but they also become more difficult
to solve, thus rendering an ever widening gap between the resolution of
PDEs and that of associated parameter identification problems that can be
solved using state of the art resources; in order to take full advantage
of these resources, highly efficient algorithms are critical. While such
efficient algorithms have been developed over the past few years, they are
mostly restricted to problems without ICs. The addition of ICs on the
controls and/or states normally increases the difficulty of the problem
due to the presence of Lagrange multipliers that have lower regularity
than the solution. Recent years have witnessed a sensible progress in the
optimization algorithms that target such problems, however, it is expected
that significant efficiency can further be gained by improvements in the
linear algebra technology needed during the optimization process. In this
project the PI specifically aims to develop optimal order multilevel
preconditioners for the linear systems arising in the interior point
method and semismooth Newton method solution processes of optimization
problems constrained by linear and semilinear elliptic or parabolic PDEs
with ICs on the controls and/or states. For the more difficult problem of
state ICs, both Lavrentiev and Moreau-Yosida regularizations will be
considered. The long term goal is to develop efficient multilevel
algorithms for large-scale control problems for fluid flows (Stokes, and
Navier-Stokes systems).

The results of this project are expected to enable end users of the software
- engineers, applied scientists - to solve
high-resolution, relevant optimization problems at a cost that is
comparable (a small multiple of) to that of performing a single
simulation. Long-term targeted applications include data assimilation for
weather prediction and air contamination modeling. Fast data assimilation
for high resolution models would enable, for example, gaining in a timely
manner a better quantitative understanding of the current state of the
atmosphere around a hurricane, thus potentially improving the current
predictive capabilities. From an educational perspective, the successful
project will help the PI's efforts in promoting this field of research at
University of Maryland Baltimore County (UMBC), and it will allow graduate and undergraduate UMBC students to gain
experience in a research area of strategic interest, which is likely to
increase their opportunities of finding a good position in a research
university or laboratory.